Integration Technologies for Optical/Flow Devices for Biomacromolecule Detection and Separation

This emerging technology of "micro total analysis systems" (uTAS) is ideal for processing of small quantities of chemical or biological species in a miniaturized, chip-based format that is robust, superior in performance, economical, and portable. This proposal focuses on broad scientific and engineering issues needed for integrated optical/microfluidic devices, with a strong component addressing fundamental concepts relevant to processing of liquid-phase materials in confined spaces (e.g. DNA solutions). The program is foremost an effort to advance basic technologies and knowledge rather than a developmental project aimed at producing a specific device. The research topics include: (i) on-chip integration of microfluidic structures with relatively short-wavelength optical systems for light sources, detectors, and waveguide routing systems, (ii) investigation of the transport of simple fluids and macromolecular solutions in submicrometer channels, (iii) fabrication of novel integrated mechanical actuators, and (iv) development of simulation and design tools for integrated microfluidic/optical uTAS systems. Various test structures will be fabricated with regard to these goals, and the fabrication effort will vigorously pursue new materials and prototyping strategies for device production. The program involves an interdisciplinary group of faculty from Columbia University's Departments of Applied Physics, Electrical, Mechanical, and Chemical Engineering as well as collaboration with other universities.